Solid Solubilities in Supercritical Fluids for Pharmacological Applications

ABSTRACT CTS-9634117 A chromatographic technique, which has proven to be a fast and reliable method for determining solid solubilities in supercritical fluids (SCFs), will be applied to pharmacological solids. This investigation intends to first measure solid solubilities of a variety of pharmacological solids and second to propose mathematical models describing their phase-equilibrium behavior in a varietv of supercritical fluids. The phase-equilibrium behavior obtained in this investigation will help design effective specialty separation solutions for pharmaceutical applications. In addition, this investigation will further the understanding of phase equilibria involving complex involatile substances in supercritical fluids. This knowledge will help in the development of more sophisticated and comprehensive models describing phase equilibria with SCFS.